RUI: Acquisition of Fourier Transform Infrared Spectrometer

The RUI grant provides partial funding needed to purchase a Fourier Transform Infrared Spectrometer (FTIR) for the Department of Chemistry and Physics at Augusta College, Augusta, GA. The FTIR is urgently needed to initiate a teaching and research program to meet the technological training demands of undergraduate scientists. The research program to be initiated deals with the potential development of FT emission into an on-line, noninvasive technique for polymer analysis and the preparation, purification, and analysis of organogermanes for kinetics studies. Undergraduates will be highly involved in the research.